Millstone Hill Observatory Investigations of Earth's Upper Atmosphere

The Millstone Hill Observatory, an incoherent scatter radar facility, continues its radar and optical research activities of the earth's upper atmosphere. Extensive ionospheric observations capabilities encompass mid-latitude, sub-auroral, and auroral features and processes. The Observatory's radar operations support programs like World Day, CEDAR and GEM in community-directed research. In addition, it supports optical experiments and Fabry-Perot interferometer and photometer observations, in conjunction with radar experiments addressing neutral atmospheric dynamics and temperatures. Resulting radar and optical data is deposited in the CEDAR database at the National Center for Atmospheric Research, where it can be accessed by students and external investigators.